Arabidopsis 2010: Development of Laser-Capture Microdissection for Plant Tissues

Timothy Nelson
Yale University
IBN-0114648
Development of laser-capture microdissection for plant tissues

Abstract
The technique of laser-capture microdissection (LCM) will be developed and optimized for plant tissues. This is a method originally developed for animal tissues, whereby individual cells are harvested by tacking them to a plastic film with a low-power infrared laser that can be aimed at single cells while viewing the tissue slice under a microscope. Using this method, it should be possible to recover specific cell types or developmental stages from complex tissues consisting of many cell types. Cells recovered in this manner can be analyzed with regard to gene expression profiles, protein profiles, and other properties. Based on preliminary data, it will be necessary to test a variety of tissue fixation and sectioning methods to adapt the method to plants. This project will optimize the LCM technique, using a variety of plant tissue sources and purity markers for specific cells. Detailed protocols will be provided to the biological community at the website http://plantgenomics.biology.yale.edu.